Symposium on Remote Sensing of Snow and Ice Proceedings

This is for support for the International Symposium on Remote Sensing of Ice and Climate. The meeting is being sponsored by the International Glaciological Society, and co-sponsored by a number of other groups. This award is to support, in part, the publication of reviewed and accepted manuscripts comprising the proceedings of the symposium.